Bubble Nuclei Measurement via an Inverse Acoustic ScatteringTechnique

The sizes and numbers of gas bubbles in water are reflected in the susceptibility to cavitation and in the acoustical properties. Acoustic probing is a simple and robust experimental method for obtaining information about the population of bubbles; however, the conversion of the measured data requires solution of a complex ill-posed inverse problem. This project will incorporate the multi-phase character of the bubbles into the model used for solving problems of this kind. Multi-phase flow and bubble dynamics will be modelled to obtain proper equations for determination of the bubble population; and the resulting ill-posed problems will be solved by regularization. This solid theoretical framework can be used to design instruments for accurate determination of the bubble population.